RIA: An Enhanced Image Processing Architecture of Linear Array Cameras

Machine vision technology is an important component of factory automation. At a time when American manufacturing seemingly has lost its competitive edge and reputation for quality, machine vision can provide cost-effective solutions to alleviate these problems. Unfortunately, making this technology work effectively and reliably on the plant floor has been an unexpectedly difficult and troublesome task. Linear-camera based systems can be an effective solution for such problems and is the focus of this research. In particular, this work addresses the current limitations of linear camera systems to enhance the low-level image processing capabilities, research into dedicated high-performance processor for intermediate-level processing and develop suitable optimized algorithms for linear camera systems. The selection and implementation of appropriate hardware elements are made with the realization that programming is usually a very significant part of the overall cost of application development.